Proposal to Support Participation of Junior Scientists from the US in International School on Physics of Indirect Excitons

The objective of this project is to support the direct expenses of young faculty, postdocs
and graduate students from the US for their participation in the International School on Physics
of Indirect Excitons that will take place on July 26 - August 1, 2014, in the Ettore Majorana
Center, Erice, Italy. We propose supporting about five or six junior scientists, graduate
students, and postdocs from US institutions. This International School is an excellent opportunity
for junior scientists from the US to learn about world-class research.